Studies of Model Systems in Statistical Mechanics and Quantum Field Theory

9703543 McCoy This grant to a senior, distinguished mathematical physicist is to support research in statistical mechanics. His contributions to exact solutions are widely known. In a two pronged attack, he is planning to study the integrability conditions of a given problem and also look for insights into non-integrable problems. In particular, he is examining the properties of time dependent correlation functions of integrable spin XXZ chains, of the energy spectra of conformal models in 2-d, i.e. the features which are important in the study of fractional statistics, theory of combinatorics and the mathematical study of q-series and the Rogers-Ramanujan identities. In non-integrable systems, the project includes a study of the Ising model in a nonzero magnetic field and ZN symmetric spin chains. %%% This grant to a senior, distinguished mathematical physicist is to support research in statistical mechanics. More specifically, this PI is well known for his contributions to several exactly solvable problems. He will continue his search for exact solutions. He will also continue to look for some understanding of what makes a problem exactly solvable (also called integrable). Finally he is planning to consider ways of applying the insights gained from exact solutions to cases where exact solutions are either not known and perhaps are not possible. ***